MRI: Acquisition of a STORM System to Establish a Nanoscopy Laboratory at the City College of New York

1337746
Sun

The PIs plan to acquire a 3-D multicolor N-STORM Superresolution Microscopy System and establish a
Nanoscopy Laboratory of the City College of New York (CCNY). The STORM system will immediately
enable 28 research topics or areas proposed by 21 faculty members, most of whom are leaders of their
own groups/labs, in 8 departments including Electrical Engineering, Biomedical Engineering, Physics,
Biology, Chemistry, Mechanical Engineering, Physiology/Pharmacology/Neuroscience, and Microbiology/
Immunology. The research activities enabled by N-STORM and performed in this project will
enhance the spatiotemporal resolution of STORM, clarify a number of biomedical hypotheses and
phenomena established by other means, and result in insightful novel biomedical knowledge. They will
promote teaching, training, and learning and improve basic science research, disease diagnostic
assessment, and therapeutics development. The results will be broadly disseminated and applied in the
fields of nanoscopy, cell biology, neurobiology, and medicine to enhance scientific, technological and
clinical understanding.